XIV International Symposium on Molecular Beams, Pacific Grove, California, June 7-12, 1992

In this project in the Physical Chemistry Program of the Chemistry Division, Professor Yuan Lee of the University of California, Berkeley, will chair the XIV International Symposium on Molecular Beams in Pacific Grove, California in June, 1992. This conference will bring together both established and younger scientists and students from around the world who are working on the forefront of molecular beam research. In the conference sessions the contribution of molecular beams to a broad range of basic and practical applications will be emphasized, focussing on areas such as collision dynamics, beam-photon and beam-surface interactions, atomic and molecular clusters, applications, and molecular beam techniques. Each of the eight sessions will have four to six speakers, with the balance of the time being devoted to contributed oral presentations. There will be a ninth, poster session. %%% The main purposes of this symposium are to enhance the contribution of molecular beams to a broad range of interdisciplinary chemical and physical phenomena as well as their practical and other applications; to expose a larger fraction of the North American molecular beams community to the ideas and thinking of the European community; and to expose young North American scientists and students to the latest developments in the subject as well as to the world-class research scientists attending symposium.